Framework for Statistical Evaluation of Complex Computer Models

Though inherently a statistical issue, model evaluation lacks a unifying
statistical framework; this project supplies such. The foundation of the
framework is the use of Bayesian techniques to quantify the degree to
which a model captures an underlying reality; develop theory and methods
that allow dual use of data in both estimation of model inputs and
evaluation of outputs; select evaluation functions, by which a model and
reality are compared and through which flaws (causes of "invalidity")
are found; and to design the collection of field and computer simulation
data. The building of the framework relies on specific formulations of
problems, motivated by testbed examples such as subsurface fluid flow
models - where the computer model is deterministic but uncertainties are
present in the model inputs and specifications - and traffic simulators
- where the model is intrinsically stochastic, in addition to having
uncertain inputs.

Computer models are everywhere and evaluating their fidelity to reality
is central to assessing their effectiveness in understanding real
phenomena (such as flow of pollutants through soil and into groundwater)
and predicting results of innovative technologies (such as new signal
timing strategies to relieve traffic congestion in urban networks). This
project develops a statistical structure and basis for such evaluations
applicable across the scientific and technological landscape. In the
process, the project creates the ingredients for a virtual laboratory
to disseminate results, broaden involvement of other researchers (and
users), and establish a unique educational and training environment.